A Statistics Undergraduate Computing Laboratory

Mathematical Sciences (21)

The statistics computer laboratory is being established to enable the incorporation of real data and data analysis into undergraduate statistics courses. The integration of technology and changes in the pedagogical approaches possible with the laboratory are expected to increase student appreciation of statistics and foster an understanding of data analysis. An upper level course involving simulations with re-sampling techniques to teach data analysis and a lower level course on basic statistical methods for pre-majors in economics, social sciences, and life sciences are among the courses being modified. Several texts and software packages are being adapted and implemented in the course. Materials are also being developed to further enable innovative and effective teaching.